U.S.-Japan Bilateral Workshop: The Tropical Tropopause Layer

This project will catalyze collaborations between US and Japanese scientists working on the Tropical Tropopause Layer by convening a bilateral workshop in Honolulu to discuss research and educational questions in this field. This is an underdeveloped area of US-Japan research and is timely. There is significant support of students and young researchers. Significance and importance are that outcomes include better understanding of Tropospheric climate and stratospheric chemistry.